Algebraic K-Theory of Group Rings and Fields

9803342
Carlsson
In this project the investigator will be studying conjectures of
Novikov and Borel, and proposing and working on a new conjecture
concerning the algebraic K-theory of fields. In the Novikov-Borel
portion of the project, he will be attempting to replace geometric
conditions (which have allowed the proof of these conjectures in a
number of cases) by more algebraic and homotopy theoretic conditions
concerning the fundamental group. The methods here include the
Pedersen-Weibel``bounded K-theory,'' and a G-theoretic version that
studies non-free modules over the group rings in question. If this
is sufficiently successful, it could lead to the solution of Borel's
conjecture that two closed manifolds whose universal cover is Euclidean
n-space are in fact homeomorphic. In the algebraic K-theory of fields
portion, the investigator has developed a new version of the
Lichtenbaum-Quillen conjectures, which appears to have a chance of
identifying the K-theory of fields ``on the nose'' (rather than in
sufficiently high dimensions) and which depends directly on
the representation theory of the Galois group rather than on the group
itself. One hopes that this will give new arithmetic applications of
K-theory.
Work on this project will be directed toward two important
problems. The first revolves around the study of manifolds, spaces
(such as spheres, tori, etc.) in which every point has a neighborhood
that resembles ordinary Euclidean space. One notion of equivalence
for such manifolds is homotopy equivalence, a relatively weak
condition. For instance, a circle and an annulus are homotopy
equivalent, since one direction of the annulus can be compressed to
obtain a circle. The other notion is homeomorphism, which is a very
strong condition, requiring that there be an explicit way to identify
the points of one manifold with those of the other so that each point
of one corresponds to exactly one in the other. The latter is
typically very hard to verify, while homotopy equivalence is
relatively easy to verify. The conjecture of Borel asserts that for a
large class of manifolds (those whose universal cover is ordinary
Euclidean space) homotopy equivalence implies homeomorphism. The
investigator is approaching this conjecture via algebraic methods,
involving algebraic invariants of the manifolds in question. The
second problem studies the so-called ``algebraic K-theory'' of fields
(algebraic objects in which one has addition, multiplication, and
division, like the rational or the real numbers). It proposes a new
conjecture for a description of this K-theory, one which is stronger
than the earlier Lichtenbaum-Quillen conjectures. In this project, the
investigator will be developing methods for verifying his conjecture
in many cases. The hope is that studying this conjecture will give
new applications to arithmetic for this topological invariant.
***